Support for Publication for "A Revision of Anthurium SectionPachyneurium (Araceae)"

Dr. Thomas Croat has completed a taxonomic monograph describing the section Pachyneurium of the genus Anthurium, the most diverse genus of the Araceae. Aroids vary from small plants to woody shrubs, and they can be very difficult to distinguish at the level of speceis. Section Pachyneurium extends throughout Mexico, Central and South America, and the Caribbean, but its greatest diversity is exhibited from Costa Rica to Peru. Dr. Croat has studied the group over a twenty year period with research support from the Systematic Biology Program of the National Science Foundation. He now proposes publication in the Annals of the Missouri Botanical Garden of a descriptive treatment of the group. This publication series has been one of the world's most influential sources of information on the taxonomy and distribution of tropical plant species. The proposed monograph publication will find a wide audience among systematic botanists, tropical ecologists, biogeographers, and evolutionary biologists. Tropical species far outnumber their temperate counterparts, and monographs such as Dr. Croat's are critical for identifying species and pursuing any further research on them. Descriptive taxonomic research such as this is the first step toward unravelling the factors contributing to the extraordinary diversity of tropical species.